Counterion Accumulation Around Finite Nucleic Acid Structures

For highly charged nucleic acid polymers, the extent and distribution of associated counterions can have a profound influence on the conformation of the macromolecule, and can play a principal role in directing the binding of proteins and small ligands. However, except for linear nucleic acids, very little is known regarding the nature of counterion accumulation. In order to address this issue, the current proposal outlines a combined computational/experimental approach to determine the extent of counterion association in the vicinity of various nucleic acid structures, including branched DNA and RNA helices. The computational approach (aim 1) will utilize a grand canonical ensemble Monte Carlo approach for the determination of ion accumulation. The principal experimental approach (aim 2), equilibrium dialysis, will measure the same quality. Finally, the technique of steady-state electrophoresis (SSE) will be employed (aim 3) to examine the relationship between thermodynamic ion binding and the effective charge of a nucleic acid undergoing electrophoresis. %%% Small ions in the vicinity of DNA or RNA molecules have a profound influence on the structures of those highly-charged macromolecules. Moreover, it is clear that such ions can participate in directing the binding of a wide variety of gene regulatory proteins to both DNA and RNA. Thus, the characterization of the interactions of small ions with higher-order nucleic acid structures is of great importance in understanding the broader issue of the regulation of gene expression. To this end, the goal of the proposed research is to characterize the net accumulation of small ions in the vicinity of simple branched nucleic acid structures, the latter being used as a paradigm for higher-order nucleic acid structure. The proposed work couples a theoretical analysis of small ion- macromolecule interactions with an experimental determination of the net accumulation of the small ions around the branch. The experimental work will employ a combination of dialysis and electrophoretic methods, which, when combined with the computational work, should provide the first quantitative view of the association of small ions around a higher-order nucleic acid structure -- a necessary antecedent for detailed studies of the salt-dependence of protein-nucleic acid interaction.